Research Planning Grant for Studies of Molecular Photoionization and Photodissociation (Physics)

An experimental program will be initiated to study highly excited states of simple molecules and their subsequent photofragmentation. The new techniques of resonantly enhanced multiphoton excitation will be developed further for particular experiments. This represents the first independent support of a promising young scientist under the NSF Research Opportunities for Women initiative.